Elementary Coordination Dynamics of Learning

This research aims to answer the following questions concerning the processes that underlie the ability of human beings to learn new skills: What changes with learning? What is the nature of change? What factors determine the form taken by changes due to learning? What governs the rate of learning? Aside from the obvious practical advantages that will accrue to areas such as education and training, answers to these questions will yield a deeper understanding of learning which is a fundamental feature of complex, living things. While it is generally agreed that individuals are not tabulae rasae but instead bring different backgrounds and capacities into the learning environment, satisfactory concepts and methods to treat such individual differences in learning do not exist. This research will introduce new methods to evaluate spontaneous coordination tendencies on an individual basis and will study how such tendencies are modified by the learning process itself. The research will use perceptual-motor coordination tasks (visually specified relative timing patterns between the limbs) as the window into learning. In a typical experiment, individual coordination tendencies will be probed prior to the introduction of a specific learning requirement. The probe will require people to match a phase relationship (given by a computer generated visual metronome) between rhythmically moving limbs, which will be changed in 15 degree steps every 15 seconds over the interval from 0 to 360 degrees. These subjects will then be trained with a specific phasing pattern (e.g., 90 degrees) that does not correspond to those coordination patterns that are well-performed in the probe (e.g., 0 degrees and 180 degrees). Knowledge of results will be provided only during the learning phase, which typically proceeds over a period of several days. Further probes will allow learning to be interpreted in terms of the cooperative or competitive interplay between the task to be learned and each individual's preferred coordination tendencies. Kelso's specific theoretical model captures the entire coordination dynamics as an equation of motion and leads to a number of testable predictions about learning. This research will examine empirically predictions concerning mechanisms of transfer and generalization to other tasks involving other components, the form (abrupt vs. smooth) that the learning process exhibits, the various routes or pathways adopted in learning a new skill, and the factors determining learning rate. This approach, by identifying dynamic constraints before, during, and after learning, includes a level of description currently missing in learning theory and often completely ignored in practical applications.